Turbulence in Collisionless Astrophysical Plasmas

Astrophysical plasmas are rarely observed to be static. Instead they
vary strongly in both time and space, a phenomena known as turbulence.
Such plasmas are also typically endowed with magnetic fields, just
like the Earth and the Sun. An understanding of turbulence in
magnetized plasmas (known as MHD turbulence) is thus required to
understand a wide variety of astrophysical phenomena, from the solar
wind in our solar system (and how the solar wind impacts Earth) to
rotating disks of gas falling into black holes (which produce some of
the brightest sources of light in the Universe). Our proposed
research is aimed at understanding the behavior of MHD turbulence on
small scales where the energy is converted into heat.

We propose to carry out large-scale numerical calculations of the
properties of MHD turbulence on small scales. These calculations will
predict observable properties of the turbulence that can be directly
compared to measurements in the solar wind, and ultimately to
measurements in the laboratory on Earth. The same calculations will
predict how plasmas are heated when the energy contained in the
turbulence is dissipated -- one of the major unsolved problems in our
understanding of turbulence. These results will be compared to
measurements in the solar wind; they will also be used to predict the
light we see from plasma falling into black holes -- our primary
observational window onto black holes in nature. More broadly, the
calculations proposed here will advance the state-of-the-art in
numerical modeling of turbulence in magnetized plasmas and will have
implications for a wide variety of laboratory, space, and
astrophysical plasmas.